2010 CSU-LSAMP Bridge to the Doctorate (Cohort 8)- BD Site: California State University, Los Angeles

California State University-Los Angeles, partner institution for the California State University Louis Stokes Alliance for Minority Participation (CSU-LSAMP)will serve as the site for the 2010-2012 Bridge to the Doctorte (BD) program. The program provides support for a cohort of 12 underrepresented minority students in science, technology, engineering and technology (STEM) disciplines.

This project contributes to advancing the NSF’s FY 2006-2011 Strategic Plan goal, which aims to: “cultivate a world-class, broadly inclusive science and engineering workforce, and expand the scientific literacy of all citizens.”

Students in the new cohort of BD Fellows will join the ranks of 80 students (out of the 90 admitted to seven prior CSU-LSAMP BD projects) who have completed Master’s degrees and/or are continuing to pursue STEM graduate studies.

Specifically, project support/activities will include: (1) substantial financial support for the initial two years of Master’s-level study; (2) rigorous course-work selected for each student in consultation with a Graduate Advisory Committee; (3) a two-year research experience under the close guidance of a faculty mentor; (4) professional development activities (e.g., workshops, seminars, conference participation); (5) monthly meetings to monitor student progress; (6) “connecting” Fellows to doctoral programs through collaborations with faculty and programs at Ph.D. institutions; (7) assistance with applications to Ph.D. programs, financial aid and fellowship programs; and (8) leveraging linkages with related campus and system-wide diversity projects and utilizing linkages with AGEP institutions and other graduate education programs and organizations to encourage program interest in admission of CSU-LSAMP BD Fellows into Ph.D. programs.